Low Coordination Number/Low Oxidation State Main Group Chemistry

In this research supported by the Inorganic, Bioinorganic and Organometallic Chemistry Program, Alan H. Cowley of the University of Texas at Austin will investigate three areas of main group element chemistry: (a) elements in unusually low oxidation state, (b) elements with unusually low coordination number, and (c) polymeric materials incorporating main group elements. The first two areas are expected to generate new chemical compounds with unusual reactivities and properties. The polymers generated in the third project would likewise be new materials with interesting and potentially useful properties. New ligands will be developed that will have supplemental coordination capacity and be designed to stabilize main group elements in low oxidation state, such as phosphorus(+1), arsenic(+1), antimony(+1), bismuth(+1), gallium(+1) and aluminum(+1). In the second area, syntheses of analogues of transition metal alkylidenes and alkylidynes will be attempted with group 14 (for example, silicon and germanium) and 15 (for example, phosphorus and arsenic) elements replacing the multiply bonded carbon to produce compounds with transition metal to main group element multiple bonds. The targeted transition metals to be employed are molybdenum, tungsten, rhenium, nio- bium, zirconium and hafnium. These compounds will then be ex- amined for reactivities similar to the transition metal alkylidenes and alkylidynes, which include polymerization reactions.